Robot Process Capability Study

The purpose of this research is to develop a methodology to determine robot process capability in terms of position accuracy, precision, repeatability and stability for operational characteristics of arm speed, weight handled and spatial location. The methodology will be experimental and will employ a non-contact (vision) measurement technique. The research will identify the critical factors which affect robot process capability. The developed procedure will be validated by evaluating an industrial robot.